Workshop: Microscale Approaches to Macroscale Issues in Terrestrial Ecosystem Ecology

In order to predict the impact of global changes on
terrestrial ecosystems, it is becoming clear that specific study of the soil microbial
community must be included. However, this has been difficult to achieve
due to: 1) technical challenges in studying what cannot be
seen with the naked eye; and 2) differences in research approach of ecosystem
versus microbial ecologists. Recent advances in methods
are making it possible to study soil microorganisms in
detail, but how to best use the information to protect
and manage ecosystems remains unclear. This workshop will bring together scientists from a range of
disciplines to identify the most important
questions about threats to ecosystems that require
microbiology to answer, and determine what strategies
and possible future techniques will allow scientists to
answer these questions?
The workshop will be significant in gathering both
young and experienced visionary experts from
several scientific areas. One of the outcomes, in
addition to a concrete research agenda, will be the
creation of an interdisciplinary research community
and increased communication among science disciplines.
Because issues in ecosystem ecology are rarely
confined within a discipline, this type of
interdisciplinary collaboration and communication is
critical for future efforts in global change research.